Planning Meeting for an Industry/University Cooperative Research Center for Microphotonics

ABSTRACT SOLGARRD EEC-9713606 This award is for a planning meeting to determine the feasibility and visibility of the University of California-Davis to become a research site of the University of California-Berkeley Industry/University Cooperative Research Center for Microsensors and Actuators. The University of California-Davis Microphotonics Laboratory's research and resources would be complementary and synergistic with the I/UCRC at Berkeley. The research agenda proposed for industrial support and additions to the UC Berkeley I/UCRC addresses: 1.) High Precision Integrated Optical Scanners, 2.) Fiber-Optic Switches for Wavelength-Division-Multiplexed Optical Communication Networks and RF-Photonics, 3.) Corner Cube Reflectors for Low Power Communication, 4.) Optoelectronic Packaging using Silicon Surface-Micromachined Alignment Mirrors, 5.) Batch-Fabricated, Magnetically Actuated Microstructures, 6.) Femosecond-Laser-Pulse Shaping, 7.) Evanescently Coupled Microphotonic Devices and Systems, 8.) Studies of Optomechanical Effects in Polymeric Thin Films, 9.) Studies of Friction and Surface Forces in MEMS.